Collaborative Research: III: Small: Foundations for Trustworthy Decentralized Federated Learning

Decentralized Federated Learning (DFL) has emerged as a new learning paradigm in artificial intelligence, enabling the training of data-hungry learning models on local devices without sharing raw data. This paradigm is immune to the single-point failure of a central server and the privacy perils caused by a dishonest server. However, the understanding of DFL is still in its infancy. It is unclear how the decentralized and periodic communication strategy affects the convergence performance of DFL algorithms, especially when tackling emerging machine learning models where the corresponding optimization problem has complicated structures, such as bilevel optimization. Furthermore, peer-to-peer communication in DFL introduces unique security risks, stemming from a combination of malicious users and device-to-device communication patterns. This project aims to design and develop a secure and efficient DFL system, addressing these communication, computation, and security issues. This project will benefit a variety of high-impact applications where machine learning models are trained in a DFL setting without sharing raw data.

This project aims to develop computational theories, models, and prototype systems, forming the foundations for trustworthy DFL, considering both high-performance accuracy and security with privacy preserving. The first focus of research is to develop the structural communication topology and pattern, underpinned by mathematical graph theories and empirical computer network techniques, to favor efficient and robust communication. The second focus is to investigate the bilevel optimization problem for emerging machine learning models in DFL, where efficient stochastic bilevel optimization algorithms will be developed, and their theoretical convergence foundations in DFL will be established. To providing security guarantees, unique security threats to DFL will be thoroughly investigated and principled defense strategies will be developed accordingly. Beyond these foundational aspects, this project will apply the developed techniques to practical data mining applications in Internet-of-Things networks and Smart Transportation, addressing the unique challenges therein and providing practical solutions to benefit real-world applications. Moreover, the team will integrate the proposed research work into several courses and provide abundant research activities for both undergraduate and graduate students with diverse backgrounds.